Polyhedral Cutting Planes for General Mixed-Integer Programming

This research project addresses the gap in the understanding of the polyhedral (geometric) structure of general mixed-integer programming problems. With an ultimate goal of developing efficient and effective cutting plane procedures for mixed-integer problems with general integer variables, strong cutting planes applicable to general mixed-integer problems will be identified through polyhedral analysis of fundamental single-constraint mixed-integer sets. The methods of the research are based on a recent work on sequence independent lifting of valid inequalities through the use of superadditive functions for general mixed-integer programming.
The expected outcome of this research project is novel cutting plane procedures that will be incorporated in branch-and-cut algorithms for solving large-scale mixed-integer programming problems. If successful, the research project may lead to significant advances in the understanding of general mixed-integer polyhedra and in the solution methods for large-scale instances of mixed-integer problems with general integer variables.